PYI: Sensor Based Robotic Assembly

This Presidential Young Investigator Award will support Dr. Kreutz-Delgado's development of a real-time testbed for sensor- based control of a dual-arm robotic manipulation system. His goal is exploration of robotic assembly and servicing principles for flexible manufacturing and for autonomous robotic systems. His current research, begun at the Jet Propulsion Laboratory, involves application of a spatial operator algebra to real-time task-level planning and use of neural-network approaches for manipulator and camera coordination.